Proposal for Supporting Travel Expenses to Attend the 7th IEEE Real-Time Technology and Application Symposium (RTAS) in Taipei, Taiwan

This proposal seeks to sponsor travel expenses for graduate students and junior faculty members
to attend the 7th IEEE Real-Time Technology and Application Symposium (RTAS) to be held
in Taipei, Taiwan and sponsored by the IEEE Computer Society Technical Committee on Real-
Time Systems. RTAS provides a forum for presenting the latest advances in real-time systems
research and for discussing the practical challenges encountered and the solutions adopted. A
special mission of RTAS 2001 is to foster discussion and technology exchange in the real-time
computing and communication communities between Asia and North America. As such, we have
invited Dr. C. L. Liu (who developed the rate-monotonic scheduling theory in the 70's and is
currently the president of National Ching-Hua University in Hsin-Chu, Taiwan) to serve as the
Honorary Chair, and top-notch researchers in both Asia, Americas, and Europe to serve on the
Technical Program Committee. In addition to single-track technical sessions, we will also organize
tutorials and workshops that address practical, temporal QoS issues in application domains or over
the Internet.

The symposium, as many other academic activities, relies on the experience of senior members
of the community but requires fresh ideas and new people to join the community. As such, and
to encourage graduate students and young faculty members to participate in the exciting technical
program, we are requesting support to defray the travel expenses for graduate students and junior
faculty attendees. The total amount requested is $12,000 on the basis of an average travel grant
of $1,200 for each selected junior faculty participant and $800 for each selected graduate student.
We believe attendance at this Symposium will be very beneficial to young scientists who otherwise
would be unable to participlate in the gathering. Contacts for future (international) collaborations
will be made and idea exchange will certainly occur. Travel support for student and junior faculty
attendance will be advertised nationwide and women, minorities and disabled students will be
especially encouraged to apply for sponsorship.